Analysis and Improvement of Linear and Nonlinear Eigenvalue Algorithms Based on Geometric Approaches

ABSTRACT

The principal investigator proposes to
continue his work with students on computational
mathematics from mathematical conception to useful numerical software.
The objectives are the further
application of modern geometrical methods towards the development
and understanding of accuracy and failures of algorithms related to
eigenvalue routines and in numerical optimization in the presence
of orthogonality constraints.

The kinds of numerical software that we investigate
mathematically are widely used in many scientific
and engineering fields. These algorithms often
work very well, but are also known to fail on
occasion; new sophisticated analyses are proposed
to fix these problems. On the education side,
these algorithms will be used in classroom settings.